Symplectic Reflection Algebras and their Generalizations

This research project is a step towards better
mathematical understanding of some aspects of Mirror Symmetry.
Mirror Symmetry predicts a natural correspondence
between the moduli of deformations of a singular Calabi-Yau variety, on one
hand, and the moduli of (Kahler structures on) resolutions
of the mirror dual Calabi-Yau variety, on the other hand.
However, there are plenty of examples of singular Calabi-Yau varieties
which have either no deformations or no resolutions at all,
or both. In such cases, Mirrror Symmetry predicts the
existence of some sort of `noncommutative' substitutes for
the nonexistent commutative deformations, resp. resolutions,
that recovers the above mentioned duality between deformations
and resolutions.

The goals of the proposal could be briefly formulated as follows.

1. Generalize the techniques based on the notion of
Symplectic reflection algebra introduced by P. Etingof and the PI during
the last 5 years to other classes of singular symplectic
varieties.

2. Develop general machinery of noncommutative deformations
of symplectic resolutions analogous to the theory of Poisson
deformations developed earlier by the PI and D. Kaledin.

3. Begin development of the theory of Calabi-Yau algebras.
These algebras should replace symplectic reflection algebras
in the case of not necessarily symplectic Calabi-Yau orbifolds.

Noncommutative Geometry is a relatively new area of
mathematics which arose in early 1980-s at the junction of
classical geometry and quantum theory. Classical geometry
which was created in its modern form in the 19-th century, is a
mathematical theory which is designed to describe precisely
various phenomena of Space and Time. It plays a fundamental role
in the equations governing electric and magnetic forces,
and is even more fundamental for Einstein's Relativity theory.

The discovery of the famous `Uncertainty Principle' had clearly
demonstrated that Classical geometry can
not adequately describe all of the complexity of Quantum theory.
The latter is one of the most important achievements of theoretical
physics of the 20-th century, which lies at the foundation of
this century's technological revolution, including
laser technology and computers. It is a physical theory
which allows to describe the behavior of very small objects, like
atoms and electrons. Noncommutative Geometry is a new kind of
geometry, that may also be called Quantum Geometry since it is
designed to provide the adequate geometry at very small distances.
Development of Noncommutative Geometry is thus absolutely
fundamental for Quantum physics. The present proposal
seeks to further develop this theory and to explore its
interactions with other areas of mathematics and physics,
including quite unexpected connections to Probability theory.